ROW: Rb-Sr and Stable Isotope Investigations of the Front Range Migmatites

The purpose of this ROW grant is to carry out Rb/Sr and stable isotopic analyses of migmatites from the Colorado front range to understand isotopic mobility during partial melting of crustal rocks. Preliminary Rb/Sr isotope analysis of leucosomes and adjacent selvages and paleosomes of these rocks have indicated that the leucosome size is a factor in the extent of isotope migration and resetting of the Rb/Sr age, however considerable ambiguity exists about other factors including fluid interactions that may affect the mobility and effective volume of homogenization of the Rb/Sr systems. This study will focus on an outcrop having widely variable sizes of leucosomes. Results may help understand the geologic meaning of Rb/Sr data, now considerably out of favor as an age dating tool.